Incorporating Usable Security Concepts into Computer Science Curriculum

Computer Science (31)

This project is developing learning materials and hands-on exercises relating to usable privacy and security to be incorporated into the undergraduate computer science curriculum. These materials are designed to help students understand how human factors are increasingly being exploited to defeat security and how to detect and prevent such attacks. The materials are peer reviewed and designed for easy adoption by other educational institutions, including adoption in non-major settings. Instead of creating a separate course to cover usability issues, the project shows how to incorporate these materials into existing courses.